Industry/University Cooperative Research Center for Software Engineering

9418767 Mathur This Industry/University Cooperative Research Center (I/UCRC) is being funded as a multi-site research Center. Purdue University and the University of Florida is adding the University of Oregon (including Oregon State University, the Oregon Graduate Institute of Science & Technology and Portland State University) as research sites in the I/UCRC for Software Engineering (SERC). Seven companies will join SERC inconjunction with the University of Oregon becoming an additional research site in the Center. The Center's research agenda will be increased by research projects on "Time Insensitive Binary to Binary Translation; "Entropy-Based Measure of Software Complexity and Its Application to Software Testing", "Visual Programming Languages", "Human Computer Interaction", and "Software Engineering Tools for the Construction of Network Applications." The researchers of involved with the Center are qualified to perform the research projects. The Center has been coordinated with Dr. Bruce Barnes, Program Director of the Computer Computation Research Program at NSF. The U.S. Department of Army has provided funding to augment the Centers ongoing research program and to obtain a membership in the Center. The Program Manager recommends the Purdue University be awarded $50,000 for the first year of a five year continuing award. An additional $35,437 is recommended for one year with funds provided by Purdue University. Near the end of each 12-month period, the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria, including the following: 1) the extent to which the industry/university interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommends support for the next period of this co ntinuing award.